NSF Postdoctoral Fellowship in Biology FY 2017: Patterns and processes in the evolution of nest construction in Ploceus weaverbirds

This is an NSF Postdoctoral Research Fellowship in Biology, under the program Broadening Participation of Groups Under-represented in Biology. The fellow, Robert Habig, is conducting research and receiving training that is increasing the participation of groups underrepresented in biology. The fellow is being mentored by David Lahti at Queens College, City University of New York. The goal of the fellow's project is to perform a comparative evolutionary analysis of nest construction in the weaverbirds (Ploceus spp.). The evolutionary history of behavior can be nearly intractable and resistant to quantitative analysis. One strategy for illuminating our understanding of behavioral evolution is to conduct comparative studies of animal architectures, such as nests. Unlike behaviors themselves, nests persist through time, and have structures that can be disassociated into several quantitative features, which permits easy and comparable measurements and allows scientists to address questions about evolutionary history and functional relevance. The fellow's research addresses two major questions: (1) How do patterns of nest construction vary within and between species? (2) How do interrelated evolutionary processes shape variation in nest structure? This project is important for advancing foundational scientific knowledge, and will be the first study of weavers incorporating both molecular data and nest morphology to better understand the evolutionary underpinnings of a complex behavioral process. The fellow is also broadening participation in science by mentoring students underrepresented in biology.

The Fellow will reconstruct the evolution of nest construction in Ploceus weaverbirds incorporating advanced phylogenetic and morphological techniques including bioinformatics, computer modeling, X-ray computed tomography, and image processing. The Fellow will also conduct fieldwork in two hotspots of weaverbird diversity, the Awash Valley in Ethiopia and the Limpopo Province of South Africa, and collect behavioral data (e.g. rates of predation and brood parasitism; mating and parental behavior) and morphological data (e.g. nest structure) to test hypotheses of how distinct types of evolutionary selection shape the evolution of nest construction. The proposed comparative study can thus address questions such as how rapidly certain nest structural features evolve, which features are ancestral versus derived, which tend to exhibit phylogenetic signal, and which evolve in response to environmental features. The Fellow is receiving training in three-dimensional morphological analyses, phylogenetic tree construction, bioinformatics, computer modeling, and mentoring skills. The plan to broaden participation includes (1) recruitment, training, and mentoring of Queens College students from underrepresented groups in biology; (2) designing an evolutionary biology curriculum that ties in the research of the fellowship; (3) teaching an evolutionary biology class to underrepresented middle and high school students at the American Museum of Natural History; and (4) facilitating a research team for middle school and high school students.